Effects of the 1982-83 El Nino Event on Tropical Eastern Pacific Coral Reefs: Disturbances, Causes, Recovery and Retrospective Analyses

This long-term study focuses on the ecological disturbances to eastern Pacific coral reefs that accompanied the severe and historically unprecedented 1982-83 ENSO (El Nino-Southern Oscillation) event. During the first 3-year segment (1985-87) of the study a strong causative link was established between prolonged sea warming and numerous kinds of primary disturbances. During the first and second 3-year (1988-90) study periods the team of workers involved in this study have (a) demonstrated the importance of several secondary (long-term) disturbance processes, (b) revealed the extent of recovery and continuing reef destruction to date, and (c) provided some indication of the frequency of severe El Nino disturbances to coral reefs in an historical context. Because some important secondary disturbances are still occurring, and reef recovery has been slow (Costa Rica, Panama) or non-existent (Galapagos Islands), it is necessary to continue with this study in order to understand the variety of changes involved and the full impact of a major disturbance on coral reef survival and the potential for continued reef building. ENSO warming disturbances can provide some clues to the probable changes in coral reefs worldwide if global warming causes repeated and/or protracted sea temperature increases comparable to the 1982-83 El Nino event.